The MarsQuest Exhibit: Extending the National Tour

The Space Science Institute will refurbish its 5,000 square foot traveling exhibition, "MarsQuest: Exploring the Red Planet" (ESI-9705377), enhancing the exhibition with new components that incorporate recent data from ongoing Mars missions, and extending its national tour for an additional three years. Enhancements include exhibits on Mars' weather, exobiology and the addition of a photo-realistic rotating Mars globe. Additional improvements include models of the NASA Mars exploration rover and an online kiosk to make additional information available to visitors after they leave the exhibition. MarsQuest is fully booked and there is a waiting list for a second three-year tour. The proposed refurbishment and enhancements will occur at the end of the current tour in 2003, with the new tour beginning early 2004.